Intercalation of Conducting Polymers in Vanadium Oxide Xerogels

The PI aims to intercalate conductive polymers into the intralamellar space of layered vanadium pentoxide xerogels. This is to be done by the in-situ oxidation intercalation of the monomers using the xerogel as the oxidant.